International Masonry Standards Development

This project will enable the United States to have a representative who will be active in the activities of the International Standards Organiation. The Organization is involved with research investigations and promulgation of standards with respect to masonry construction, such as unreinforced and reinforced masonry. The participation of the United States representative and other colleagues will enable the United States research and professional communities to keep abreast of new developments occurring in foreign countries. The data resulting from this activity is very useful to the programs of the National Science Foundation and to the United States academic, professional, and construction communities.